MRI: Acquisition of a Dual-Beam Focused Ion Beam / Scanning Electron Microscope for Materials Research and Education

Non-Technical Description
This Major Research Instrumentation grant allows acquisition of an advanced microscope at the Singh Center for Nanotechnology at the University of Pennsylvania. This microscope uses two different types of particles - electrons and ions - to form high magnification images and give quantitative information about the chemical composition of materials. The microscope is outfitted with a number of special tools that make it particularly capable of characterizing soft matter: materials such as plastics, liquid crystal polymers and biological cells. These materials have been very difficult to characterize in the past as they are very fragile when exposed to high-energy electrons and ions. This instrument includes the ability to freeze samples to very low temperatures to mitigate this problem. It plays a vital role in the education of undergraduate and graduate students, visiting scientists, post-doctoral research associates and local high school students and teachers through existing NSF-funded Center efforts on the campus. The instrument is also used in advanced undergraduate/graduate laboratory classes across multiple departments. Additionally, its location in a fully staffed, open-access NSF National Nanotechnology Coordinated Infrastructure facility allows scientists and engineers from multiple nearby companies and universities to utilize the tool for their own work.

Technical Description
The focused ion beam (FIB) / scanning electron microscope (SEM) enables five major research activities: (1) serial sectioning (cryo)tomography, (2) cryo-sample preparation for subsequent scanning transmission electron microscopy (S/TEM) characterization, (3) time-of-flight secondary ion mass spectroscopy (ToF-SIMS) characterization, (4) nanofabrication, and (5) S/TEM sample preparation. Serial sectioning allows in-depth understanding of the three-dimensional structure of liquid crystal polymers, colloidal nanoparticle superlattices, polymer/nanoparticle composites and other hierarchical materials. Cryo-transfer and FIB-based sample preparation is used to develop methods for characterizing semi-crystalline polymers, colloidal nanoparticle superlattices and polymer/nanoparticle composites. ToF-SIMS allows researchers to understand diffusion in polymeric materials with unprecedented resolution. The instrument supports multiple nanofabrication efforts at the Singh Center's Quattrone Nanofabrication Facility and enables new fabrication approaches for two-dimensional materials. Finally, the low-voltage/low-current capabilities enables ultrathin sample preparation for use in the Singh's S/TEM instruments across a range of research projects which require exquisite atomic-scale characterization.